A Conference of State Science Supervisors on ChemSource

Their project will offer a conference to acquaint State Science Supervisors with the comprehensive Chem Source curriculum. They will be made aware of the goals, methods, capabilities, technology and resource of Chem Source and how it can improve the teaching of Chemistry in the schools. The Supervisors will learn about dissemination mechanisms, the process of getting industrial support for the project and the availability of Chem Source Workshops. The NSF grant is being matched with other funds in the amount of 32% of the NSF award.